CAREER: Towards Scalable and Actionable Interpretability of Language Models for Code Generation

Language models (LMs) have become the backbone of many modern artificial intelligence (AI) products and have transformed how people live and work, yet our understanding of how they function remains limited. This lack of understanding has raised growing societal concerns about the reliability and safety of these models. Meanwhile, existing AI interpretability approaches suffer from limited scalability, preventing their application to modern LMs, and it also often fail to produce actionable insights that directly benefit downstream applications. This CAREER project seeks to advance AI interpretability research by addressing these two challenges and expanding scientific knowledge of LMs. In particular, the project focuses on code generation, a structured prediction task with broad applications in data analytics, information acquisition, software development, and beyond. The research outcomes will be integrated into a series of educational initiatives, including AI literacy outreach programs, undergraduate early research opportunities, new curriculum development, and open-source educational resources.

The project includes three research goals. First, the project will deliver a new framework for mechanistic LM interpretation. In addressing the scalability and actionability challenges, the framework interprets only a subset of LM mechanisms most relevant to downstream applications while employing LM agents to assist with the interpretation process. Second, the project will apply this framework to interpret LMs for code generation, investigating their mechanisms for syntactic rule application, semantic knowledge recalling, and deliberate reasoning, and will examine how these mechanisms can be impacted by data and learning paradigms. Third, the project will explore interpretation-informed methods to improve code generation, thereby translating interpretation insights into practical model enhancement.